Measuring Mathematical Knowledge for Teaching: Evaluation Module Development and Dissemination

Intellectual Merit:

This proposal draws on existing efforts to develop measures of elementary and middle school
mathematical knowledge for teaching. Different from conventional assessments of mathematical
knowledge (e.g., the SAT or Woodcock-Johnson assessment), these measures investigate the special
mathematical knowledge teachers use to work in classrooms with students. For instance, these measures
assess not only whether teachers know that 1 3/4 1/2 = 3 1/2, but also whether they can explain what
this equation means, can construct a concrete representation or word problem which corresponds to it, and
can understand and generalize from an unusual solution method for this problem. This proposal responds
to a number of challenges that have arisen while disseminating these measures to researchers.

Currently, the Learning Mathematics for Teaching project (LMT) disseminates pre-piloted forms and
technical information for evaluating teacher learning in K-8 number and operations, pre-algebra and
algebra, and geometry. Teacher learning opportunities, however, frequently focus on more narrowly
defined topic areas for instance, rational number concepts and operations. Yet items capturing teacher
knowledge of rational number compose only one component of LMT's number concepts and operations
measures. Because these current measures include other topics, they are unlikely to be appropriately
sensitive to the content and effects of such professional development.

In response, this proposal argues for the construction of evaluation modules designed to be sensitive to
and allow research and evaluation in the following areas: rational numbers; proportional reasoning;
geometry; data analysis and probability. In all but the last topic area, for which LMT will create an
entirely new set of items, the project will review and supplement existing items, create a form composed
of items that capture key teacher competencies in these areas, pilot this form, then compose technical
materials that support these modules' use. These technical materials will include two parallel forms and
pre-equated raw-score-to-standardized-score conversion tables, to facilitate straightforward scoring.

This proposal also describes plans to improve the quality of dissemination training by exploring the
nature of problems that arise when outside evaluators use these measures, and describes work to improve
measures of teachers' knowledge of student learning around content.
Intellectual Merit

This proposal grows from a well-established measures development project. At every step in this project's
history, the provision of high-quality measures has coincided with and in some ways, depended upon
progress in building theory about content knowledge for teaching mathematics, and exploring new areas
in measurement design and scaling. This will be the case in the work proposed here, as well.

Broader Impact

This proposal enhances the infrastructure for research on teacher learning. These measures can be used to
evaluate teachers' learning in pre-service teacher education programs; to make comparisons between
preparation in traditional teacher education programs and alternative routes to certification; to judge the
efficacy of professional development aimed at improving teachers' content knowledge for teaching; and
to estimate the effects of curriculum materials designed to improve teachers' knowledge of mathematics
and students. These measures are accessible to users with limited technical expertise, comparable across
programs and approaches to professional development, and of high technical quality.